Explainable Spatial Machine Learning Methods for Complex Socioeconomic Data

The aim of this project is to develop advanced explainable spatial machine learning-based artificial intelligence models and algorithms for clustering and predicting complex spatial data, focusing on problems involving socioeconomic data. These methods help uncover complex spatial patterns and provide a deeper understanding of how socioeconomic factors relate to outcomes across different areas. They are applicable to a wide range of real-world problems in various interdisciplinary fields, including public safety, social sciences, geosciences, and advanced manufacturing. These methods are made accessible and interpretable through visualization software and open-source tools.

In this project, innovative, explainable spatial machine models and algorithms are developed, motivated by the analysis of complex spatial socioeconomic data. The clustering method is based on a new Bayesian random graph partition model capable of handling diverse socioeconomic data types and distributions while incorporating prior domain knowledge. A spatial nonparametric regression model utilizing spatially aware ensemble decision tree models and a scalable optimization algorithm also is developed. These methods are well-suited for estimating complex nonlinear effects of socioeconomic covariates on spatial responses and for making predictions at unobserved locations. The algorithm works with both normal and non-normal outcome data and can handle large datasets and high-dimensional covariates. Additionally, the project develops visualization software and a new spatial Shapley value framework to enhance the interpretability of model results.